Crystallographic Studies on Heme Containing Enzymes

The long term goal of this project is to determine the crystal structures of heme containing enzymes. New structural information is expected to broaden our data base on two fundamental mechanistic questions: first, the mechanism by which heme enzymes activate molecular oxygen and/or hydroperoxides and; second, the mechanism by which electrons transfer between proteins in intermolecular complexes. Structural information derived by x-ray diffraction techniques is essential to address these questions. Therefore, the main tools to be employed in this work are those of protein x-ray crystallography. The project focuses on the crystal structure determination of lignin peroxidase (or ligninase) and mutant forms of cytochrome c peroxidase.